Computerization of the Vascular Plant Collections

This project is a computerization effort that will capture data for $140,000 of the 200,000 vascular plant specimens in the C.E. Bessey Herbarium (herbarium acronym: NEB) of the University of Nebraska State Museum (UNSM). In detail, this project will comprise data capture and barcoding of the vascular plant specimens from the United States and Canada, beginning with the 13 angiosperm families that are most numerous in this collection and in the northern Great Plains and continuing until all of the North American vascular plants are entered. The herbarium project will also provide a model for all the collections of the UNSM as the Museum strives to convert its records to an interoperable database that will be central to research, collection management, service, exhibits, and education. The database will conform to current standards for the discipline and follow future developments available from the IUBS Commission of Taxonomic Databases (TDWG) and the US Organization for Biodiversity Information through their respective web sites. This effort, which is fully coordinated with those at the R. L. McGregor Herbarium (herbarium acronym: KANU) of the University of Kansas Natural History Museum (KUNHM), will result in a plant database for the central and northern Great Plains that is both regionally and historically complete. The NEB database will follow the KANU protocol in using the botany module of Zoe, a museum-specific and flexible data model developed by Julian Humphries in Microsoft's relational database Access. Computerization of data for the remaining vascular plant specimens (60,000 sheets), the non-vascular plant specimens (80,000 packets), and the paleobotanical specimens (10,000 fossils)will be the focus of efforts after the completion of this project. The other long-term goals of this proposed project are (1)georeferencing the collection records for compatibility with GIS databases;(2) insuring interoperability with other units of the UNSM and oth er natural history collections, especially KUNHM; and (3) developing a parallel taxon-based database to facilitate educational and public use of this specimen-based database. Because these long term goals are best accomplished with regional efforts, the procedures to be followed and the database structure are based on those of the KANU Collections Information Management System (CIMS) so that it will be easier for both institutions to coordinate future developments to optimize the research, educational, and outreach uses of each museum's database.